The Center for Turbulence Research Summer Program

PI: Moin, Parviz
Proposal Number: 1565451
Institution: Stanford University
Title: The Center for Turbulence Research Summer Program

This is a project to partially cover travel and organizing expenses related to the workshop entitled “The Center for Turbulence Research Summer Program”, to be held at Stanford University during June 26-July 22, 2016. This would be the 16th time that this biennial program is organized by the Center for Turbulence Research (CTR).
The CTR summer school program is an immersive, hands-on meeting that focuses on developing of new models and testing hypotheses proposed by the participants, utilizing large turbulent flow databases. The meeting covers many important areas of turbulent flow research, such as instabilities and transition, large eddy simulation, Reynolds averaged modeling, multiphase turbulent flows, combustion, and turbulent transport of mass and heat. New calculations to generate new databases are often performed during the Summer Program. The participants, who are competitively selected based on proposals for research, are divided into focus groups based on their proposals. The meeting will be attended by both prominent and young scientists in fluid dynamics from around the world, who will be discussing future directions of research and research challenges in these research areas. The meeting will also address modeling challenges involved in advancing the field for the next two to five years.
One of the main goals of the conference is to frame the challenges in turbulence modeling for the next few years. The findings of the program will be collected and published as a comprehensive technical report. It is expected that the report will consist of forty to fifty technical papers (about 500 pages), which will be delivered to NSF and to other sponsors of the program, in addition to worldwide dissemination at the end of the calendar year. The report, like the reports from the prior workshops, will be available on the worldwide web for downloads, (http://www.stanford.edu/group/ctr/). Many of the papers in the report will be eventually published in high quality technical journals.